Research Experiences for Undergraduates in Chemistry at the University of Nebraska

Dr. Patrick Dussault and other members of the Chemistry Department at the University of Nebraska at Lincoln are being supported to provide a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1996-98, twelve undergraduate students will spend ten weeks each summer actively engaged in basic research projects drawn from the traditional areas of chemistry and biochemistry. Participants are recruited nation-wide. A special feature of the program is interaction with industry: four area companies with substantial operations in chemistry contribute to the site through tours, career briefings, technical training, and student research training.